Bio-Impermeable TPU Copolymers: ML-Guided Design for Predictive Biocircular Materials Engineering

Plastic packaging plays a critical role in food security and public health by protecting food, medicines, and consumer goods from contamination. Multilayer plastics protect air- and moisture-sensitive food and pharmaceutical products. However, these plastics generate tiny plastic particles called microplastics, which can accumulate in water, soil, and food systems. They can re-enter the food chain and affect human health. This project will develop new biodegradable packaging materials that will break down in composting environments without generating persistent plastic particles. Experiments will be combined with computational datasets and machine learning tools to study the degradation of polymers. Project outcomes could help enable a compostable packaging market with an annual value of over 40 billion dollars. The project will train the next generation of scientists and engineers with the skills needed to build a safe and resource-efficient economy.

This project will advance biodegradable thermoplastic materials. It will focus on three main objectives: 1) Develop machine learning-guided computational models to explore the chemical design space of biodegradable thermoplastic materials; 2) Synthesize and evaluate candidate materials against established barrier benchmarks for multilayer packaging films, with biodegradation confirmed under controlled industrial composting conditions; and 3) Evaluate environmental resilience and commercial viability across the full material lifecycle, from raw material production through end-of-life composting, using life-cycle assessment and techno-economic analysis methods. The project will use an integrated modeling approach to systematically explore material chemistry across a wide design space while ensuring that predictions remain grounded in experimentally measured properties. The project will advance sustainable materials design beyond packaging, with implications for membranes, coatings, and elastomers. The project will train graduate, undergraduate, and postdoctoral researchers at the intersection of polymer chemistry, machine learning, and environmental systems science. The project will help ensure leadership in the design of resilient and resource-efficient systems in the United States.